Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

The Division of Statistics at the University of California at Davis will purchase a 32 node Beowulf supercomputing cluster which will be dedicated to the support of research in the mathematical and statistical sciences. The equipment will be used for several research projects, including in particular: studying regression trees for correlated survival data, specifically prognostic classification of cancer and dental patients; Bayesian analyses for detection of climate change and attribution to specific anthropogenic causes such as increasing atmospheric carbon dioxide and sulfate aerosols; linkage analysis incorporating age of onset and clustering methods to study gene expressions; nonparametric prediction regions for multivariate, nonlinear stochastic processes; and analysis of functional or curve data in experimental aging research.